Boston University Workshop on Computer Aids for the Physically Handicapped

Boston University will host a Workshop on Computer Aids for the Physically Handicapped (BU-CAPH) on October 2-3, 1989 under the coordination of Dr. Bryant York of the Computer Science Department of Boston University. The workshop is sponsored by the Computer and Information Science and Engineering (CISE) Directorate of the National Science Foundation (NSF). Approximately twenty-five participants will assist CISE in assessing the needs and planning programmatic activities involving the use of computers to aid the physically handicapped in education and research. The participants will be separated into three or four small working groups and develop recommendations for the NSF/CISE Directorate.